Connections to the NSFNET for Chabot College and Las Positas College

9521286 Threlfall This project connects Chabot College and Las Positas College through the Chabot/Las Positas Community College District to the Internet over a T1 (1.544 million bits per second) line. Faculty and students at the school benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for one year.